Applications of Partially Observed Stochastic Optimal Control

This research encompasses investigations into three problem areas in the field of stochastic control theory. In each of the areas, specific problems are identified for study with the expectation that theoretical insights and a better understanding of the issues will evolve from the research. The three problem areas are: (i) stochastic adaptive control: Bayesian adaptive control problems for diffusions are formulated as partially observed stochastic control problems. (ii) control of flexible manufacturing systems: These problems are formulated as control problems with jump markov disturbances. (iii) doubly stochastic control problems: Models with stochastic parameters will be treated as partially observed stochastic control problems and their solutions will be characterized. In all of the three problem areas results about specific prototype examples will be stressed with the objective of obtaining generic solution techniques. This research considers several problems in the general area of stochastic control theory. These problems arise in many important engineering problems such as adaptive control and control of manufacturing systems. By formulating the problems as partially observed stochastic control problems it is expected that this research will lead to new methods of characterizing the solution to these important engineering problems.